Lisp Accelerator for Numeric and Symbolic Processing

A hardware Lisp Accelerator will be designed for solving the requirement to do both numeric and symbolic processing in the same computer system. The need is particularly acute with real time systems, such as expert systems for pilot aiding, where vast amounts of numeric data must be processed, while multiple expert systems operate simultaneously in real time. Coventional numeric computer systems incur large software overhead while processing Lisp programs, and are thus very slow by comparison to specialized artifical intelligence (AI) computers known as Lisp Machines. Conversely, Lisp Machines are severely deficient when applied to numeric tasks. Neither type, therefore, performs well if required to handle multiple expert systems in real time. The research approach is to develop a hardware Lisp Accelerator - functionally similar to a numeric co-processor in a PC or an array processor in a scientific computer - able to operate within the architecture of a conventional numeric computer system. Multiple Accelarators as well as host-configurable, special-purpose Accelerators will be explored. The conceptual design and necessary licensing are done. Phase I will be a detailed analysis and simulation of the design. Phase II will result in a working prototype.